Temperature Regulation of Top-Down Control in a Pacific Upwelling System

Nearly all the animals that inhabit the ocean are "cold-blooded" or ectothermic, meaning their body temperatures match the temperature of the ocean around them. This has important consequences for their physiology and more broadly for the way marine ecosystems function. When ectotherms warm up, their metabolism increases; meaning they breathe more rapidly, and eat more just to stay alive. This is bad news for prey since a warm predator is a hungry predator. But warming also enables prey species to crawl or swim away more quickly when being hunted. Thus, everything speeds up in warm water. Energy flows more quickly from the sun to seaweeds (via photosynthesis), to the herbivores, then on up to the large predators at the top of the food chain. The research team is testing these ideas in the Galápagos Islands to determine how temperature influences marine ecosystems. Ongoing work in this iconic natural laboratory is helping marine ecologists understand the role of temperature and how this and other ecosystems could function in the future as climate change warms the ocean. Other broader impacts of the project include student training and on-site outreach to tourists and the local community about ocean warming and some of the lesser-known species that inhabit the Galápagos.

The broad goal of this project is to understand the effect that temperature has on patterns and processes in upwelling systems. Specifically, the team is measuring the temperature-dependence of herbivory and carnivory in rocky subtidal habitats of the Galápagos. They are performing field experiments to measure the relative and interactive effects of temperature, herbivory, and nutrient flux on the productivity and standing biomass of benthic macroalgae. Additionally, they are using in situ predation assays across spatial and temporal temperature gradients and mesocosm experiments to determine the relationship between ocean temperature and predation intensity for predator-prey pairings including whelk–barnacle, sea star–urchin, and fish–squid.